Thermodynamics of Reciprocal Solutions

Experimental, theoretical, X-ray diffraction, and petrological studies were proposed that will define the thermodynamics of two common mineral types: tetrahedrite- tennantite (td-tn) sulfosalts and Ti, Al, and Fe3+-rich high- calcium pyroxenes. Results will be integrated spectroscopic and petrological studies to provide data that will help significantly in understanding the environment of formation of many ore deposits. One atmosphere (Pt-loop) melting and crystallization experiments were proposed to determine of crystal-liquid equilibrium between high-calcium pyroxenes and alkalic silicate melts. These results will be combined with pther data to produce a model of the crystallization of high-calcium lavas.